Register Allocation with Instruction Level Parallelism

In this Research Planning Grant (RPG) proposal, the PI will evaluate various approaches to instruction level parallelism in modern architectures. More specifically, the project will investigate variations to existing register allocation approaches to optimize the performance of loops. The project will also evaluate register allocation approaches with software pipelining.